Coherent Laser Remote Structural Analysis

Bridges require routine inspection to detect flaws before they lead to damage and dangerous conditions. The objective of this project is the application of coherent laser vibration to detection of flaws by remote inspection. The method will apply a laser technique to pinpoint flaws in individual structural elements of this bridge. Phase I demonstrated the technique on the total structure and was successful in detecting mechanical changes in the total system.